Connection to NSFNET

9318775 Bell Spring Hill College is establishing a connection to NSFNET via a 56,000 bits per second line through SURAnet the mid-level network in the area. The connection enables the school's faculty and students to communicate and collaborate with the international scientific and educational community, and to access network resources such as libraries, databases and supercomputers. This award funds part of the cost over a two year period.